Origin of Dipping Reflectors within the Oceanic Crust of the North Atlantic

Dipping reflectors within the oceanic crust have been observed in marine multichannel seismic data from several different areas. These reflectors are frequently confined to the lower crust and either die out in the mid-crust or flatten out and merge with strong sub-horizontal upper crustal reflectors. A small number of obrserved reflectors cut through the entire crustal section. The geological significance of of these intra-crustal dipping reflectors is still poorly understood. They have been interpreted as normal faults, primary magmatic layering in the lower crust, or low-angle thrust faults. This project will do additional processing and interpretation on data sets from three areas in the Atlantic Ocean; the Blake-Spur fracture zone, the MARK area south of the Kane fracture zone, and the Canary basin.